Washington State Manufacturing Technology Standards, Competencies and Curriculum Development

9453739 Riehl South Seattle Community College, Boeing Company, Eldec Corporation, Clover Park Technical College and 12 other organizations will develop a process for determining specific workplace standards for manufacturing education and training in Washington State. These standards will, in turn, lead to an industry-guided manufacturing technology core curriculum. The curriculum will begin in high schools and will feed into a 2+2 Tech Prep post-secondary community college program. A workplace-based internship will also be an integral part of the curriculum. This comprehensive, innovative proposal has strong support from both labor unions and industry. It will help bridge the gap between secondary school technical education and the requirements of the industrial workforce.